Learnings about K-12 Science Curriculum Implementation and Dissemination: A Two-day Symposium to be Convened in Washington, DC, in the Late Fall of 2005

The project proposes a symposium bringing together the four NSF funded Science Implementation and Dissemination Centers along with other experts to focus on the following themes:

1. curriculum design and selection
2. curriculum-focused professional development
3. curriculum implementation in schools and districts
4. future directions

The purpose of the meeting is to synthesize the existing knowledge base around science curriculum use and to examine the lessons learned about the above themes gained from the experiences from each Center. Products will include monographs that address each theme and a synthesis of the final evaluations from each Center. The PIs have a plan for distribution and dissemination of the monographs, including putting them in book form and creating a process for electronic distribution.

An Advisory Committee will guide the development of the Symposium through representation from each Center, along with national consultants.